CAREER: Physiological Basis of Working Memory: Modeling of Prefontal Cortical Circuitry and its Neuromodulation

IBN 97-33006 WANG. Working memory is an active form of short-term memory. It is indispensable for any cognitive process where information has to be maintained with attentive effort for a few seconds, and manipulated "on-line", before it is erased and new information is loaded. Examples are dialing a telephone number, planning and executing a sequence of motor movements, reading, and thinking. Experiments on behaving animals have started to uncover the neuronal basis of working memory in the prefrontal cortex. Dr. Wang will use theoretical approaches, in complement with laboratory experiments, to investigate how the working memory function can be understood in terms of the physiology of single neurons/synapses, the cortical circuit architecture, and emergent collective network behavior. In particular, possible neuronal mechanisms will be studied by computer model simulations for sustained neuronal activity (in seconds) and its selectivity to memory items, including (a) reverberating activity across the cortical network, (b) slow cellular and synaptic dynamics, and (c) the role of recurrent synaptic inhibition. Results from this research will help to understand the functioning of normal working memory, its neuromodulation, as well as its malfunctions.